I-Corps: Social Media Misinformation Interactive Dashboard

The broader impact/commercial potential of this I-Corps project is the development of an online dashboard with misinformation forecast trends and analysis to help address the misinformation endemic in America. Misinformation is a significant issue that may create confusion and misunderstanding about essential topics. Misinformation online may result in people questioning evidence-based medical guidance or refusing safe treatments. Understanding current misinformation content and trends supports both corporate entities and social media users. For corporations, th proposed suite of tools may show how misinformation impacts businesses by exploring and forecasting public sentiment concerning relevant misinformation topics. This analysis may provide value to these agencies by shifting resources from manual identification to analyzing the content and implications of misinformation posts. Individual users may be better equipped by understanding not only the major topics in misinformation but also an explanation of why this misinformation topic is being spread. Potential customers may be drawn to this proposed technology since information demand is met from grassroots organizations, which can be inconsistent with data quality.

This I-Corps project is based on the development of automated data collection, data analytics, and deep learning methodologies. The goal is to develop an application and associated website that centralizes up-to-date misinformation content and metrics. Such a solution will provide potential customers with an enterprise-level system to help better understand the implications and types of misinformation spread across social media platforms. Currently, an array of tools to interact with misinformation content is under development. Pipelines are being constructed to channel and store raw data using the selenium framework for the collection step. Thesedata are stored locally and will act as the raw information to support the finalized dashboard. Deep learning models that are trained to identify text-based misinformation have been developed with the goal of expanding to image, sound, and video identification to address current social content trends. This Transformers framework also identifies sentiment on specified topic groups to support analysis. The proposed technology involves multiple research areas, including big data, natural language processing, artificial intelligence, and statistical analysis.